The Impact of Law on the Development of Transnational Markets in the Islamic World

Throughout history, the legitimacy of the state has been generally thought to be tied to territoriality and familiar concepts of voting and voice. Law has been considered to play a supportive role in the political and economic systems in the state. This project promises a radical revision of the concept of society organizing politics around territoriality and "voice" and suggests conceptualizing a society organized around movement or "exit," with the legal system playing a major role. To demonstrate this new concept, the investigator will conduct a comparative history of state-building in medieval Europe and the Islamic world. The study will trace the role of law in the medieval Islamic world order as the crucial institution that allowed free movement of goods, people, and capital. It is argued that the coherence of the medieval world order was structured by movement or exit. Critical to the working of exit as a device for ordering transnational markets is the role of law as a system of establishing property rights and resolving disputes. Primary Arabic source material and secondary social history documents will be examined to test the thesis that merchants, artisans, and intellectuals moved freely in the Middle East during the medieval Islamic world and that movement was related to the tax policies of the local kings. Thus, instead of belonging to a particular polity or powerful state, they participated in the structuring of a translocal market in the southern Mediterranean region. This created a system of economic and political relations which minimized the costs of movement (exit) and enhanced competition between would-be monarchs, thus limiting the attempts of potential aggrandizers to create territorial dynasties. In Europe, by contrast, the legitimacy of the state was tied to territoriality, voting, and voice. This study offers a new perspective for understanding medieval history and for shedding light on why the political structure of Islam was so different from the political structure of Europe. In addition, the open and fluid character of the market in medieval Islam also bears certain structural resemblances to the transnational character of global markets in the present world order. Thus, this project should advance our comparative understanding of the way in which markets are formed and structured. The possibilities for exiting a political system (made possible by the presence of Islamic law across the domains of Islam and the weakness of individual Islamic states) helps to understand the world of increasing interdependence. The part that Islamic law played in the process has important implications for the sociolegal aspects of contemporary global change.